Conference: Analysis and Geometry on Complex Manifolds

This award provides funding for U.S. researchers to attend two summer schools and two workshops during the special semester "Analysis and Geometry on Complex Manifolds" in Budapest, Hungary, scheduled for August-September 2025. Hosted by the Alfréd Rényi Institute of Mathematics, these events aim to connect renowned experts with junior researchers, providing an introduction to current topics in the field, sharing recent advancements, and encouraging collaborative research. Funding priority is given to U.S. based participants without alternative sources of support, with a special emphasis on applications from early-career mathematicians and members of underrepresented groups in the discipline.

The first summer school will cover introductory topics in Kähler geometry, while the second will focus on non-Kählerian aspects. The workshops will address both classical Kählerian and non-Kählerian topics as well. On the Kählerian side, discussions will explore non-Archimedean aspects of the SYZ conjecture, pluripotential-theoretic approaches to singular Kähler-Einstein metrics, and Calabi-Yau metrics on non-compact manifolds. In the non-Kählerian realm, topics will include cohomological properties of complex and symplectic manifolds, analytic techniques in non-Kähler geometry, almost-complex and symplectic structures, deformations of complex objects, topological aspects of complex and symplectic manifolds, and Hodge theory on almost-Hermitian manifolds. Further details can be found on the special semester’s website: https://erdoscenter.renyi.hu/articles/complex-manifolds.